SGER: Trace Gas Chemistry and Dating Seafloor Gas Hydrates

Kastner OCE-9817612 The Pis will conduct research on the concentration of trace gases in seafloor methane hydrates and on dating them with state-of-the-art geochemical instrumentation. Dating hydrates is essential for under- standing the mechanisms and rates of hydrate formation and dissociation and because methane hydrates constitute a major transient sink of oceanic carbon. Pb-210/Pb-206, C-14, CfC11/12, Kr-85 and Th-230 analyses are planned.